LTER: Georgia Coastal Ecosystems - IV

The Georgia Coastal Ecosystems (GCE) Long Term Ecological Research (LTER) program, based at the University of Georgia Marine Institute on Sapelo Island, Georgia, was established in 2000 to study long-term change in coastal ecosystems. Estuaries (places where salt water from the ocean mixes with fresh water from the land) and their adjacent marshes provide food and refuge for fish, shellfish and birds; protect the shoreline from storms; help to keep the water clean; and store carbon. The GCE LTER researchers study marshes and estuaries to understand how these ecosystems function, to track how they change over time, and to predict how they might be affected by future changes in climate and human activities. They accomplish this by tracking the major factors that can cause long-term change in coastal areas (e.g. sea level, rainfall, upstream development), and measuring the effects of these factors on the study site. They also conduct focused studies to assess how key marsh habitats will respond to major changes expected in the future, including large-scale experiments to evaluate the effects of a) increases in the salinity of the water that floods freshwater marshes (mimicking drought and/or sea level rise), b) changes in water runoff from land into the upland marsh border (mimicking drought or upland development), and c) exclusion of larger organisms in the salt marsh (mimicking long-term declines in predators). During this award they will initiate additional studies to systematically evaluate how coastal wetlands respond to disturbances. Disturbances, or disruptions in the environment, are particularly important to understand in the context of long-term background changes such as increasing sea level, and GCE researchers are working to assess the cumulative effects of multiple disturbances on the landscape. The GCE education and outreach program works to share an understanding of coastal ecosystems with teachers and students, coastal managers, citizen scientist and the general public.

The GCE-LTER project has four goals. 1) Track environmental and human drivers that can cause perturbations in our focal ecosystems. This will be accomplished this through continuing long-term measurements of climate, water chemistry, oceanic exchange, and human activities on the landscape. 2) Describe temporal and spatial variability in physical, chemical, geological and biological characteristics of the study system (coastal wetland complexes) and how they respond to external drivers. This will be accomplished through field monitoring in combination with remote sensing and modeling. 3) Characterize the ecological responses of intertidal marshes to disturbance. This will be accomplished by ongoing monitoring and experimental work to evaluate system responses to major perturbations in three key marsh habitats (changes in inundation and predator exclusion in Spartina-dominated salt marshes; increases in salinity in fresh marshes; changes in runoff in high marshes), by implementing standardized experimental disturbances along salinity and elevation gradients, and by tracking responses to natural disturbances. 4) Evaluate ecosystem properties at the landscape level (habitat distribution, net and gross primary production, C budgets) and assess the cumulative effects of disturbance on these properties. The project will also develop relationships between drivers and response variables, which can be used to predict the effects of future changes. This will be accomplished through a combination of data synthesis, remote sensing and modeling. The GCE "Schoolyard" program provides K-12 teachers with research experience that they use to develop classroom activities. The GCE will distribute a popular children's book (now in its second edition) with accompanying lesson plans, and will produce a comic book with associated educational content. They will promote two citizen science web applications focused on the salt marsh. The GCE will provide research opportunities through internships for a diverse group of undergraduates, and will run web-based courses that provide interdisciplinary training for graduate students. The GCE will partner with the Georgia Coastal Research Council to exchange information with managers and promote science-based management of coastal resources. GCE data, reports and other information is broadly available on the GCE website.